Computer Architectures for the Natural Evolution of Machine Code

The theme of this project is designing a computer architecture and operating system that will support the natural evolution of machine code. The primary computational objective is to experiment with a large number of variations on the successful architecture in order to find the optimal balance of computational power and evolvability.